SBIR PHASE II: Web-Based Machinability Process CAM Suite

*** 9704188 Iyer This Small Business Innovation Research (SBIR) project will develop computer assisted manufacturing (CAM) planning software, based on physical mechanistic models and accessed on the world wide web. The research will focus on robust process planning modules oriented to the machine tool industry. A reliable security scheme will offer adequate protection for transmission over the Internet and storing of sensitive design data. An innovative feature will be the availability of the proposed CAM system on the Internet as well as Intranet suites for large institutional users. The system will enable linkage of floor personnel in small- and medium-sized with design and research engineers in large enterprises. The research will also develop an adequate on-line, self-paced training facility with extensive design and analysis examples, applications, and utilization notes. A commercial pay-per-use process planning CAM suite service and a modified version for use on corporate Intranets is expected for marketing to the machine tool industry. ***